Topical Meeting on Optical-Microwave Interactions

9317825 Wangemann This proposal requests partial support for travel funds for young faculty and graduate students to attend the topical meeting on Optical -Microwave Interactions, to be held in Santa Barbara, CA July 19-21, 1993, under a sponsorship of the IEEE Lasers and Electro Optics Society. The meeting will provide a forum for presentation and discussion of fundamental scientific and engineering advances in the interaction between optical techniques and microwave/millimeter wave applications. The discussions will focus on several broad areas: (1) the use of ultrashort-pulse lasers and high-speed optoelectronics for the control and characterization of devices, circuits and interconnects; (2) microwave signal generation and distribution with cw lasers and optical modulators; and (3) generation of ultrashort electromagnetic transients and their applications. *** scotco" " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " " "9317825 Wangemann This proposal requests partial support for travel funds for young faculty and graduate students to attend th F t t ( Times New Roman Symbol & Arial / " h * z p 1 Cassandra Queen Cassandra Queen